GC-MS in the Undergraduate Curriculum

The Department of Chemistry is purchasing a gas chromatography mass spectrometer (GC-MS). The instrument is being incorporated throughout the curriculum, from introductory courses for non-science majors to the senior research program for chemistry majors. Acquisition of the GC-MS is making possible the development of a new environmental chemistry program.